SBIR Phase I: A Novel Infrared Video Camera

This Small Business Innovation Research Phase I project aims to develop a novel, low-cost, infrared video camera. Infrared imaging is a rapidly growing market valued at roughly $500 Million. The proposed infrared camera is capable of meeting the requirements of commercial, military, and the R&D markets. It has the potential to make infrared imaging as affordable as imaging in the visible. Successful completion of this SBIR project is expected to lead to a $5,000 IR camera whereas the present cost of a similar system is close to $70,000. The proposer's IR camera boasts ruggedness, high pixel count, and good temperature sensitivity. The goal is to demonstrate an 'uncooled', 1024 X 1024 pixel camera with a temperature sensitivity of 0.2 K in a hand-held format.
The proposed IR camera will find applications in the areas of process control, agriculture, machine vision, quality control, military, and R&D.